Collaborative Research: Examining the Vulnerability and Recovery of Small Farms to Natural Hazards and the Impact to Rural Community Resilience

This Disaster Resilience Research Grant (DRRG) project contributes to the advancement of national health, prosperity and welfare by creating new knowledge on disaster recovery for the agricultural industry. Despite the criticality of agriculture to U.S. and global food production, the lack of economic diversity and prevalence of agriculture in many rural areas, particularly in the central US, is theorized to be a major contributor to low disaster resilience. Resilience is a complex function of socio-economic dimensions and the built environment; and the population, economics, and physical infrastructure that comprise agricultural regions are distinct from the urban and suburban areas that are the common focus of most disaster and community resilience studies. This research generates a fundamental understanding of the resilience of farms and agriculture-prevalent rural communities in the face of severe windstorms, which will be of broad benefit to society and to national resilience. The research team will identify, evaluate, and recommend actions to enhance resilience of farms. To maximize the impact of these findings, the team will partner with the Extension Disaster Education Network for outreach and technology transfer. Implementation of these mitigation measures can transform the disaster resilience of rural and agricultural regions, safeguarding the lives of citizens, regional and national economies, and global food production.

The long-term goal of this research is to enhance the resilience of rural communities to natural hazards, which requires state-of-the-art research on the infrastructure that support farm operations, the recovery processes of individual farms, and the interaction of individual farms within the regional agricultural economy. As a first step towards enhancing rural resilience, the interdisciplinary team will conduct a three-year research project carefully tracking resilience from hazards to structures to farms to communities. The project is characterized by two primary goals. The first goal is to generate a fundamental understanding of the vulnerability and recovery of farms following windstorms through longitudinal reconnaissance of impacted agricultural communities, surveys of impacted farmers, correlation of hazard intensity with infrastructure response, and the examination of the linkages between recovery of individual infrastructure with farm-level recovery. The second goal is to develop and validate a risk-informed resilience assessment framework comprised of a farm-level resilience factors and community-level economic analyses to support decisions on business continuity and infrastructure investment for farms and the broader agriculture-prevalent rural communities.